NER: Application of Paramagnetic Nanoparticles for Biological Agent Detection

ABSTRACT

Broadband biological agent detection is developed whereby chains of labeled paramagnetic nanoparticles are caused to rotate through a magnetic field and signal is enhanced through a lock-in amplification technique. The project, if successful, will allow improving signal to noise ratio for biosensors. Three students are involved and many aspects of the research from nanotechnology, nanomagnetics, sensing, and modeling are all involved. Good outreach activities and teaching are incorporated into the research.

This project is being funded by the CTS/ENG (C Aidun, PD) and ECS/ENG (R Khosla, PD).